Exploring terahertz electrodynamics of correlated quantum phases in 2D transition metal dichalcogenides.

Nontechnical Abstract: Atomically thin materials, and especially materials made by arrangement of stacks of atomically thin layers, offer a broad range of unique and tunable properties that can be utilized in future technologies. In order to make application possible, we need to first understand and control the behavior of such materials. However, measurements and experimentation bring unique challenges related to the nature of atomically thin structures. In this project, the PI utilizes advanced experimental methods to study the properties of several novel quantum materials built of stacks of atomically thin layers. The methods being developed and applied here are capable of delivering useful information from very small and sensitive samples. This research will advance our fundamental understanding of atomically thin materials and lead to new functional devices. It can also provide an active learning environment for graduate and undergraduate students to gain interdisciplinary skills.

Technical Abstract: This project aims to investigate the terahertz electrodynamic responses of correlated quantum phases, such as Wigner crystals, doped Mott insulators, and fractional Chern insulators, in two-dimensional (2D) transition metal dichalcogenide (TMD) heterostructures. The TMD heterostructures have emerged as one of the leading platforms for studying novel quantum phases formed by interacting electrons. However, despite the great interest, the electrodynamic properties of these states at their characteristic frequency scales are little explored. In this project, the PI develops advanced on-chip terahertz spectroscopy to study these properties. Specifically, the PI explores three research directions in the project: (1) Investigating electrodynamics of Wigner crystals under magnetic field and optical excitation. It can elucidate the competition between Wigner crystal and quantum Hall phases. (2) Exploring the electrodynamics of doped Mott insulator in TMD Moire superlattice, which provides a quantum simulation of the paradigmatic Hubbard model. (3) Exploring THz collective excitations in moiré fractional Chern insulators, including novel fractional excitons and signatures of composite fermions in twisted MoTe2 heterostructures. The proposed project can advance our fundamental understanding of correlated and topological phases in the TMD heterostructures. It also provides an interdisciplinary learning environment for graduate and undergraduate students.